The Relationship Between Iron Availability and PhytoplanktonProductivity in the Southern Ocean

Southern Ocean waters are famous for their high phytoplankton productivities. However, those familiar with the Southern Ocean know that the high productivity is generally confined to shallow shelf areas and to waters along the ice edge; in comparison, little productivity occurs offshore even though the waters contain massive amounts of major plant nutrients. One possible explanation for this finding is that an essential trace element or organic nutrient is missing. Although evidence supporting this idea has been sought for the past 60 years, rigorous testing was not possible before the recent development of ultra-clean techniques which avoid trace-metal contamination. Martin has evidence which suggests that iron is the limiting trace element. In order to test the theory that the presence or absence of iron is responsible for variations in Antarctic marine phytoplankton productivity, Martin proposes to measure iron concentrations in nearshore and offshore Southern Ocean waters and in ice samples using ultra-clean techniques. Ultraclean phytoplankton iron-enrichment experiments will also be performed. Testing the iron-deficiency hypothesis is important because the Antarctic ecosystem will never be adequately understood without knowing the reason(s) why major nutrients are not used by phytoplankton. The use or non-use of these major nutrients plays a significant role in determining global atmospheric carbon dioxide levels.